Southern California Geometric Analysis Seminar

Abstract

Award: DMS-0406078
Principal Investigator: Bennett Chow, Peter Li,
Zhiqin Lu, Lei Ni

This award provides partial support for three years of meetings
of the Southern California Geometric Analysis Seminar, a series
that is organized by UC San Diego and UC Irvine and brings
together researchers in geometric analysis and related topics
from those campuses, Caltech, UCLA, UC Riverside, UC Santa
Barbara, USC, and other schools in the region. The organizers
place a priority on the participation of graduate students and
recent PhDs, especially members of underrepresented groups. The
Seminar meetings are the unique annual meeting of their kind in
the Southern California area, and this conference series has a
valuable history of building connections between mathematicians
in the region.